Enabling Technologies for Multimedia Computing

Audio, video and graphics will play a major role in shaping the evolution of computers and communications. To this end, the formulations of new mechanisms for multimedia computing and visualization are proposed, with emphasis on time-dependent data. Specific research objective are (1) the development of protocols for multi-media communications. (2) the modeling of time-dependent data for storage, communication, and interfaces; (3) the development of new paradigms for interactive digital video; and (4) the provision of time-dependent information retrieval in a distributed database and shared-object environment. An operational distributed multi-media information system will be developed to demonstrate the work. The prototype system will be designed to support scale-up for general-purpose multimedia computing including computer-aided instruction and collaborative work. Current technology will be used for data compression, communication, and interface toolkits; tailored to implement the theoretical results. The proposed research consists of the development of communications protocols and other mechanisms to enable interactive multimedia computing systems. Although many application-specific systems have been developed, effective support for multimedia applications in a general distributed environment is not widely studied. This work emphasizes the enabling technology rather than applications per se; however, an application will be developed that may lead to innovative approaches to learning, human-computer interaction, and computer-aided education.